Equipment to Improve Undergraduate Course Work and Independent Study in Biochemistry

This project involves acquisition of a refrigerated centrifuge for use in the undergraduate biochemistry program. The centrifuge permits the preparation of materials for a wide variety of experiments that illustrate basic biochemical techniques used in laboratories associated with regular coursework. This acquisition also opens to undergraduates an array of additional independent research projects in biochemistry, providing valuable preparation for the large percentage of students from this department who pursue professional education beyond the baccalaureate. These increased opportunities, while not novel, fill a gap in the previous biochemistry laboratory program, strengthening it in significantly ways. The grantee institution is matching the NSF award with a slightly greater sum obtained from non-Federal sources.